NSF Young Investigator: Coordination Chemistry of Redox-Active Tetradentate Hemilabile Ligands

Proposal: 9357099 PI: Mirkin Coordination chemistry will be the subject of investigation for Professor Mirkin of Northwestern University; he will conduct this research with support in the form of an NSF Young Investigator Award from the Inorganic, Bioinorganic, and Organometallic Chemistry Program. One area of his research will be in the synthesis and properties of "hemilabile" complexes. These are complexes of ligands that bear a redox-active site, are tetradentate in the reduced state and bidentate in the oxidized state. When the central metal ion is Rh(I) it is thus expected to be inert when the ligand is in the reduced state, but when in the oxidized state it should be an effective catalyst for olefin hydrogenation. This scheme provides an entree into redox-switchable catalysis. Another area of research deals with self- assembled monolayers (SAMS). Specific plans include using derivatized metalloporphyrazines as the surface layer, and, in particular, where the ligand design leads to the plane of the ligand being perpendicular to the surface; this will lead to a parallel orientation of the ligand planes, which is expected to confer unusual electrocatalytic properties on these SAMS. %%% The nascent concept of "molcular devices" poses many opportunities in chemistry. One approach is based on traditional coordination chemistry, where a metal ion is bound to another molecule (called a ligand) at several sites. An interesting development is to build into the ligand the ability to donate an electron, for when this is done the binding of the ligand to the metal ion can change radically. This change can make the difference between a metal ion that is catalytic and one that is not, and thus one has the elements of a method to switch catalytic activity one and off. Another development is to design ligands that will cause themselves to adsorb to a surface to form a highly oriented monolayer. If the surface is an electrode, then such a monolayer could c onfer unique reactivity to the electrode. Experiments to test and develop these ideas form the core of the research to be conducted in this project.